Research Planning Grant: Examining the Utility of Fuzzy Set Theory in Mathematical Modeling and Natural Language Interfaces

9453701 McCauley-Bell The research proposes to investigate the use of fuzzy set theory to identify and model the primary elements that are necessary to describe human performance. The research also aims at investigating the use of fuzzy set theory to evaluate the feasibility of linguistic hedges and natural language interfaces in human computer interaction.